Conference: Annual Meeting of the West Coast Bacterial Physiologists to be held in Pacific Grove, CA. December 11-13, 2015 and December 9-11, 2016

This Conference award will help to offset registration costs for advanced undergraduate and graduate students and postdoctoral fellows to attend the 2015 and 2016 West Coast Bacterial Physiologists Meeting. At this meeting, approximately 90% of the talks will be presented by undergraduate and graduate students, as well as postdoctoral fellows. Junior Faculty initiating their research programs will be invited in order to facilitate their integration into the broader scientific community. The scientific focus of the meeting, foundational aspects of microbial physiology, will be relevant to biotechnological applications (bioremediation, biofuels), metabolomics and other systems-level -omics approaches, genome to phenome studies, and synthetic biology. Meeting organizers will work towards a gender and minority balance in lecturers and conveners.

The West Coast Bacterial Physiologists Meeting will be held in December of 2015 and 2016 at the Asilomar Conference Center in Pacific Grove, California. The meeting will be organized into four scientific sessions over a three-day period. Each of the four sessions will begin with an invited "John Ingraham Lecturers in Microbial Physiology" which will span the range of microbial physiology fields and include new and emerging topics (including genome to phenome relationships, computational modeling, advanced DNA sequencing methodologies). The meeting program and abstracts will be made publicly available on the meeting website. The meeting will give young researchers the opportunity to give an oral presentation at a scientific conference, and will help to integrate junior Faculty into the research community, which will create new collaborative research opportunities.